Doctoral Dissertation Research: Management of Community Health Outcomes in Non-Clinical Settings

This doctoral dissertation project investigates adaptations in communities that are faced with large-scale addiction and dependency. Using ethnographic and behavioral data, investigators test the hypothesis of whether adaptations to addiction and dependency can provide communities with broader solutions for the management of health. Research findings expand scientific understandings of the community management of community health outside clinical settings.

The research makes contributions to medical anthropology and community management of health outcomes more broadly. Broader impacts will expand the STEM workforce and inform and translate into best practices for the development of tools for the management of health and improving public safety.